Acquisition of 300MHz NMR Spectrometer

This Proposal requests partial funding for a vertical bore, intermediate field NMR spectrometer for high resolution spectroscopy in structural biology. The instrument will consist of a 7.05 T magnet, sufficient homogeneous volume for 10 mm proton and 20 mm heteronuclei sample tubes, and a console with all features necessary for advanced techniques such as proton detection of heteronuclei, spin locking, multiple quantum experiments, and all other modern two dimensional methods. The spectrometer will be utilized by a core group of five Major User (four with NSF funding) and several minor users. The projects of the Major Users focus on NMR applications to structural biology. Planned research using the proposed spectrometer emphasizes studies of biomolecule structure and model compounds of protein active sites, primarily on systems containing paramagnetic metal centers. Each investigator has an established program of NMR research with spectrometers of lesser capability, and the Proposal documents the additional knowledge to be gained by the new capabilities of the proposed instrument. The proposed instrument will come under the auspices of the UC Davis NMR Facility. The Facility has a proven record of over ten years in implementing state-of-the-art NMR techniques, and in spectrometer maintenance and modification.